ITR: A Novel Framework with Fast Inverse Scattering Algorithms for Future Environmental Sensing

Qing Huo Liu
Duke University

This research aims to develop a novel framework for rapid and accurate processing of
geophysical subsurface measurements in multilayer media. At present, only 2-D mappings
(i.e., the low-resolution images on the ground surface) are available, greatly limiting the target
depth information. Due to the excessive computational demand, previous inverse scattering
algorithms for these sensors have been developed, but only for objects in a homogeneous
background medium. This new computational framework is expected to dramatically improve
the way environmental site characterization is being performed.
The investigator will develop rapid and accurate computational algorithms for the process-
ing of some of the arguably most important measurements in environmental site characteriza-
tion and oil exploration, namely electromagnetic induction (EMI), ground penetrating radar
(GPR), surface seismic, and borehole sonic imaging measurements in 3-D heterogeneous,
multilayer media. These algorithms, coupled with large-scale computing and visualization
platforms, form a novel framework for current and future environmental site characterization
where 3-D subsurface structures can be directly investigated, and sensor arrays can be adap-
tively optimized. The main contributions of this research are: (1) Rapid inversion methods
based on accelerated extended Born/Rytov approximations in layered media; (2) High-fidelity
imaging algorithms based on preconditioned contrast source inversion methods in a multi-
layer background; (3) A 3-D imaging and adaptive optimization framework using these fast
inverse scattering algorithms for multi-sensors. These approaches are expected to yield a
high resolution because they account for the important multiple scattering effects that cause
the resolution degradation in previous linear inversion methods. The development of the al-
gorithms for objects embedded in multilayer media represents significant advances in inverse
scattering and its applications in environmental site characterization and oil exploration.